ITR: FLINT---A Mobile-Code Infrastructure for Advanced Languages

Platform-Independent Computing, as popularized by Java, is a key
technology for developing and executing next generation software on
distributed and heterogeneous computing platforms. The current
state-of-the-art mobile-code system is built around the Java Virtual
Machine Language (JVML). Unfortunately, JVML does not support other
programming languages well and is notoriously inefficient, complex,
and hard to extend. This research focuses on developing a new
mobile-code infrastructure that eliminates all of these weaknesses.
The infrastructure will be based on the FLINT typed common
intermediate format (also developed by the PI) and will provide
support to multiple programming languages such as Java, ML, and C. The
research will investigate new techniques on building certifying
compiler, smaller virtual machine, and more extensible runtime system
for compiling and running the FLINT mobile code. The resulting
infrastructure will be made publicly available to support other
cutting-edge research on proof-carrying code and secure internet
programming.